The Design, Definition, and Implementation of Programming Languages

9804014 Reynolds The main goal is the design of a purely functional programming language with a sufficiently refined type structure to give the programmer explicit control over storage allocation. The proposed starting point is Benton's logic LNL, which integrates the computational lambda calculus of Moggi with a language using linear types. It should be possible to implement a language based on LNL so that linear values do not need garbage collection or reference counts, and so that the user has explicit control over the choices between linear and nonlinear values, and between call by value and call by name. Further possibilities include the ability to "freeze" a linear structure temporarily (which would prohibit updating while permitting multiple references), the inclusion of types for specifying in-place algorithms, and an extension to permit concurrent processes whose interaction can yield nondeterminate results. Additional topics that may be pursued are: the unification and generalization of approaches to reasoning about side effects, aliasing, and interference, the modeling of polymorphic types by means of partial equivalence relations on Scott domains, and the investigation of the relationship between partial equivalence relations on domains and information systems. ***